Privacy Preserving Database Application Testing

Government agencies and private organizations are accumulating
a vast amount of sensitive information on citizens. These
organizations often develop new applications to utilize the
information stored in the databases. An essential phase of
developing such a new application is to test it thoroughly
prior to deployment.

Traditionally, application developers carry out tests on their
local development databases. A major shortcoming of this
approach is that these local databases usually have only a
small number of data samples and hence cannot simulate
satisfactorily a live environment. On the other hand, the
practice of testing applications against live production
databases is becoming increasingly undesirable due to the
fact that such use of live production databases may disclose
sensitive data to an unauthorized tester and incorrectly
update the underlying databases.

This project investigates techniques to generate mock databases
for application software testing without revealing any confidential
information on the live production databases. Cryptographic
techniques such as indistinguishability will be used to model
privacy preservation as well as the degree of similarity between
a live and a mock database. Success of the project will open up
a new approach to secure application software testing and produce
a prototype system for future deployment.